Ecology of the Chesapeake Bay Workshop

A six-day residential workshop on the "Ecology of the Chesapeake Bay" for 24 community college science faculty from the five-state Chesapeake Bay watershed is being held in Summer 1991 at the University of Maryland's Chesapeake Biological Laboratory (CBL), Solomons, Maryland. The workshop includes two days of lecture, two days of field activities on CBL's research vessels, and two days of laboratory work at CBL. The technical content is being provided by CBL researchers and focuses on the topics "Plant Life" and "Waterfowl and Vertebrate Fish". These topics were selected by community college science faculty in the 17 Maryland community colleges, in response to a survey administered in spring 1989. Field activities expose workshop participants to Chesapeake Bay nutrient and toxic budgets and to hydroacoustics technologies. A significant follow-up activity is a videoconference scheduled for October 1991 for 400-500 additional persons, including educators in the biological, physical and social sciences, interested teachers, government officials dealing with the environment, and industrial representatives. Partial support for this follow-up videoconference is from the Chesapeake Bay Trust. //